Advances in Computer Network Timekeeping

This project continues previous research in network time- synchronization technology and proposes new algorithms adapted for use in high speed, wide area networks including supercomputers and superscalar workstations. The technology makes use of the Network Time Protocol (NTP) widely used now in the Internet, together with engineered modifications designed to improve accuracy in high speed networks, including SONET and ATM. The project also involves the design and construction of precision timekeeping devices that provide improved timekeeping accuracy which it is expected to improve to some tens of microseconds in modern RISC-based workstations. Finally, the project involves the conduct of experiments designed to evaluate the success of the research and assist technology transfer to computer manufacturers and network providers. The requested support will permit the assignment of professional management and staff resources to implement these programs so that the efforts of the regional and other midlevel network participants can be coordinated.